Differential operators on von Neumann algebras

Differential operators on von Neumann algebras
Nikolai Weaver

Project Summary

Differential operators on operator algebras have been studied
extensively as a model for the infinitesimal time development
of a quantum-mechanical system, either isolated or interacting
with a macroscopic system. The proposed research involves a
study of differential operators on von Neumann algebras building
on the investigator's prior work on the special case of first-order
differential operators.

Operators on a Hilbert space are infinite analogs of finite
matrices. They have applications throughout mathematics, but
the proposed research relates specifically to mathematical
physics. Von Neumann algebras of operators have been used to model
certain quantum mechanical systems, particularly those arising in
quantum statistical mechanics. The proposal involves using ideas
of Fields medalist Alain Connes to study the time-evolution of
these algebras, with the double aim of clarifying the general
theory and giving insight into specific examples.